Mathematical Sciences: Universal Algebra and Logic

Blok will continue his work in universal algebra and algebraic logic. The main themes of this research are the finite basis problem for quasivarieties, the structure of congruence distributive varieties, and the connection between metalogical properties and algebraic ones. It is unlikely that such foundational studies will have immediate impact outside of algebra and mathematical logic, but given time, it is surprising how much of foundations finds its way into computer science.